Long Term Variations in the Rotation of Neutron Stars

AWARD NO: AST-0606710
PI: Ira Wasserman
INSTITUTION: Cornell University
TITLE: Long Term Variations in the Rotation of Neutron
Stars
ABSTRACT:
The research to be carried out here is a renewal of a project of the same title. Building
upon this previous work in which the precession and nonlinear saturation of the r-mode
instability of neutron stars was examined, Dr. Wasserman and collaborators/students will
undertake two major computational projects. The first is a numerical study of vortex lines
and magnetic flux tubes in neutron star interiors. The work is motivated by the need to
understand the precession of pulsar PSR B1828-11 and whether its slow period
contradicts a conventional neutron superfluid/proton Type II superconductor core model.
Critical to this is the strength of drag forces between superfluid vortices and
superconducting flux tubes, which will be addressed here (if the mutual drag force
between superfluid vortices and superconducting flux tubes is too strong, long period
precession would not be possible). Second will be a study of how the nonlinear
development and saturation of the r-mode instability affects the spin evolution of new
and old accreting neutron stars. Recent work by Dr. Wasserman's group (supported by
the NSF previous award) has shown that the r-mode instability tends to saturate at lower
amplitudes than originally thought but the implications of this result on the subsequent
spin evolution of neutron stars remains unexplored.
Through this work, graduate students at Cornell will be trained in advanced and
multidisciplinary (astrophysics, gravitational physics, condensed matter) theoretical
research. Dr. Wasserman participates in the Harlow Shapley Lectureship program and
will continue to lecture regularly on forefront topics in astrophysics (including this
project) to diverse audiences, which include members of the public and high school
students in addition to faculty and students at the host colleges.